TC: Small: Collaborative Research: Towards a Dynamic and Composable Model of Trust

People rely on two types of trust when making everyday decisions:
vertical and horizontal trust. Vertical trust captures trust
relationships between individuals and institutions, while horizontal
trust represents the trust inferred from the observations and opinions
of other peers. Although significant benefit could be realized by
combining horizontal and vertical trust mechanisms, they have evolved
independently in computing systems.

This project focuses on developing a composable trust model capable of
tightly coupling vertical and horizontal trust in a manner that is
both amenable to formal analysis and efficiently deployable. This
research advances the state of the art in trust management through a
series of innovative results, including the design of a unified
framework for specifying composite trust policies and the design and
analysis of efficient algorithms for policy evaluation. The composite
trust management approach championed by this project also enables
policy authors to move beyond simple proof of compliance to identify
the "top-k" preferred users satisfying security policies including
subjective assessments. The beneficiaries of this research range from
administrators of traditional computing systems who can better
incorporate previous history into their decision-making processes, to
users in social networks who can more carefully manage the exposure of
their personal data.